New Polymers with Controlled Architecture

Monodispersed dendritic macromolecules having controlled surface functionality will be prepared by two methods. The first involves a novel "convergent" approach in which growth of the macromolecule starts at what will become its external surface and proceeds inwards through repeated coupling of a polyfunctional monomer to the single reactive group of the growing polymer, while the second method uses a more classical solid-phase approach. The "convergent growth" approach provides unparalleled control of both the number and the spatial location of the functional groups at the outer surface of the final spheroidal macromolecule. Once prepared, the dendritic molecules will be used to prepare new macromolecular assemblies with unusual architectures and properties. This will be done through modification of the surface functional groups in processes involving grafting, block polymerization, or coupling reactions. In particular, the growth of linear polymer chains form controlled locations on the outer surface of dendritic macromolecules will be studied. The synthesis of these new macromolecular assemblies will lead to new materials with novel properties resulting from their unusual topology, their uniform small size (30-100) A), their symmetrical or unsymmetrical surface functionalization, the existence of strong molecular dispoles, the presence of chirality, etc. Applications of these new materials are anticipated in areas as varied as molecular transport, catalysis, and optoelectronics.